Support of the 1990 Gordon Conference on Organic Thin Films;February 12-16, 1990; Los Angeles, CA

This award provides partial support for the February 1990 Gordon Conference on organic thin films. The chairperson is Joel M. Schnur of the Naval Research Laboratories in Washington, D.C. The conference will focus on the fundamental aspects of organic thin films from a molecular point of view. The relationship between the molecular structure of the films and the macroscopic properties exhibited by them such as wetting, adhesion, and lubrication will be examined. The ability to molecularly engineer films for potential applications will be explored. Application topics include biosensor fabrication, advances in sub-micron microlithographic resists, and non-linear optical thin films. State of the art techniques such as atomic force and ion conductance microscopies will be examined in the context of their utility for the study of organic thin films. The conference will bring together chemical, material, and electronic engineers, biologists, physicists, and chemists. This conference indirectly supports the major thrust of the Chemical and Thermal System's Material Chemistry and Chemical Processing initiative. Approximately 125 attendees are expected. The NSF support enables participation of young investigators, such as graduate students, as well as faculty with inadequate resources to attend. Under-represented groups will also be targeted for support. Three international experts will be invited to participate from Japan and Western Europe.